Increasing the Number and Expertise of Evaluators of Programs with Emphases in Science, Mathematics, Engineering, and Technology

The Evaluator's Institute provides high quality short-courses taught by nationally recognized experts in the evaluation field. Courses are scheduled to allow participants to take 2-3 courses over the period of a week. However, SMET evaluators. This award will allow approximately 90 SMET professionals per year to receive $1000 tuition scholarships to take courses of their choice.